Managing Uncertainty in Toxic Substances Risk Management and Research Planning Decisions

This project, funded under the Joint NSF/Private Sector Research Opportunities Initiative, will use techniques from decision analysis to develop methods for improving toxic substances risk assessment, risk management, and research planning decisions. It will explicitly represent uncertainties in exposure and dose-response, and use the concept of the value of information to evaluate research initiatives whose outcomes could permit departures from default guidelines for carcinogenic risk assessments. These include use of the most sensitive strain and species, linearized low-dose extrapolation, etc. A set of case studies will develop decision models focusing on representative regulatory and research alternatives for specific toxic substances. Informal panels of experts will be used for probability assessments, and the research will be reviewed with interested parties in government, industry, and other groups. Case studies will be summarized in terms of specific insights and generalized principles that may be widely applicable.